Nature and Cause of Long Period Background Oscillations

9972855
Tanimoto

It is well known that the Earth undergoes oscillations after large earthquakes. Recent studies show that the Earth is oscillating continuously, even when earthquakes are not occurring--fundamental spheroidal modes between 2 and 7 mHz appear to be constantly excited irrespective of earthquake occurrence. The goal of this study is to understand this phenomenon and delineate its cause through the use of gravimeter data, broadband seismometer data, and barometer data. Temporal and spatial variations of these oscillations will be analysed and their behaviors will be characterized and documented. Possible causes include 1) cumulative effects of small earthquakes, 2) atmospheric effects, and 3) slow/silent earthquakes. Preliminary analyses indicates that the first cause cannot produce the signals unless a well known seismological relation (the Gutenberg-Richter magnitude-frequency relation) is violated, which is not likely. Therefore, this study will focus on the latter two hypotheses, namely atmospheric excitation and slow/silent earthquakes.